Dissertation Research: An in situ Chamber Design for Measuring the Effect of Groundwater Lake Interactions on the Community Structure of Benthic Algal Assemblages

9520704 KERFOOT Groundwater exchange across the bottom of lakes plays a crucial role in the structure of the benthic community at this interface. This project will utilize a novel in situ chamber designed to determine the importance of groundwater fluxes on benthic communities and processes. The chamber allows free exchange of water, or the chambers allow blockage of this exchange across this dynamic interface. Translocation experiments will be performed with these new chambers to determine how nutrients delivered by groundwater influence the biota at the benthic interface and how this process affects within-lake biodiversity.